Pion and Kaon Production at Intermediate Energies

9412479 Hicks The first nucleon resonance will be studied in carbon via photoproduction using linearly polarized gamma rays at the Laser Electron Gamma Source at Brookhaven National Lab. Decay of the resonance into a pion and nucleon will be observed. A related measurement will be carried out at the TRIUMF lab in Canada using polarized protons to excite the resonance. The objective is to study the effect of the nuclear medium on the fundamental nucleon resonance. An experiment will be initiated at CEBAF to study electroproduction of hyperons. The objective here is to constrain constituent-quark models of these resonances ***